Dissertation Research: Population Genetic Structure and Differential Avian Extinction on Barro Colorado Island

This dissertation research addresses potential causes of avian extinction in a recently fragmented forest. Barro Colorado Island is a 1500 hectare forest preserve in the Panama Canal that was isolated from mainland forests approximately 70 years ago. The disappearance of certain species from Barro Colorado (BCI) since the formation of the canal is typical of extinctions that occur in habitat fragmented by clear-cutting and other types of human activities. While some species tend to be tolerant of habitat fragmentation, and manage to persist in small isolates, other species are prone to disappear even from the largest of habitat fragments. The investigators will examine the additional possibility that natural variation in population genetic structure may account for variation in extinction probability in a habitat isolate. Since species extinction from habitat isolates is a complex biological process, involving changes in species interactions and population biology, the problem warrants examination of more than one factor. Using the rapidly developing technique of DNA fingerprinting, the investigators will seek to describe population genetic structure at a fine scale that is difficult to examine with less sensitive methods. In addition to assessing the research question posed here, the data generated will lend itself to further characterization of hypervariable minisatellite regions of DNA. The promise of DNA fingerprinting, and similar new molecular techniques that can distinguish genetic variation among individuals, is for its use in determining minimum viable population sizes, suitability of mates in captive breeding programs and the genetic impacts of re-introductions. With continued development, molecular biological techniques will allow close monitoring of the genetic status of dwindling populations.